Increasing Student Participation in Cluster Computing through IEEE Cluster 2011 Attendance

Funding of $35,000 is provided to support the development of future cluster computing professionals, by helping 50 students attend the 2011 IEEE International Conference on Cluster Computing (Cluster 2011).